Travel Grants for Graduate Students and Young Faculty for the International Symposium on Microarchitecture

This proposal is in request of $25,000 for travel grants for graduate students and young faculty for the 35th International Symposium on Microarchitecture (MICRO). MICRO is the premiere conference in this very vibrant and topical area. This year the conference will be held in Istanbul, Turkey from November 18th-21st.